REU Site in Electrical and Computer Engineering at the University of Minnesota

This award provides funding to the University of Minnesota-Twin Cities for the support of a five-year, REU Site in Electrical and Computer Engineering, under the direction of Dr. Douglas W. Ernie. This ten-week summer program will involve fifteen students annually in an intensive research experience on a wide range of topics including biomedical engineering, computer engineering and VLSI design, control systems, power systems and electronics, magnetic recording technology, optics and photonics, microelectronics materials, device design and fabrication, and signal processing and communications. Each student will be paired with an electrical and computer engineering faculty mentor and will be actively involved with the mentor's research group. In addition, the participants will be involved in extensive complementary educational activities, including a weekly seminar series focusing on heir research projects, career seminars/field trips, and specialized workshops on assorted topics. As a capstone to their REU experience, each student will prepare a final written report and give a presentation at a concluding departmental poster session and an all-campus summer research program symposium.